Ethics in Televised Political Advertising: Abuse of Technology

Concerns about ethical abuses in televised political advertising have grown substantially as a result of developing video technology. This demonstration project is designed to explore the development of criteria and coding instruments for determining types of ethical abuses in technology for televised political ads. A panel of experts in communication ethics will develop criteria for identifying types of abuses. The criteria will be used to develop a coding instrument to be applied to political spots and a small pilot project on a small sample of actual spots will be conducted, to determine the usefulness and workability of the coding instrument. The demonstration will also develop a script for an educational videotape which would discuss the problem of political ethics and technology, providing samples of misleading technological applications and suggesting standards of evaluation. This project marks the beginning of scholarly work on a topic of major importance on issues of technology and democracy; results are likely to advance scholarly and public understanding of the effects of media in political life. The investigator and the expert panel are highly qualified; the research plan is good; the budget is very reasonable; and the proposal is recommended for support with high priority.